Presidential Faculty Fellow: Tissue Engineered Constructs for Cartilage and Bone Regeneration

9553162 Laurencin This Presidential Faculty Fellow award will support a plan of research aimed towards the design, fabrication and analyses of tissue engineered constructs for skeletal regeneration using connective tissue cells derived from muscle. The teaching component of the five year project will introduce new initiatives for greater engineering education opportunities for African-Americans, a cross-disciplinary, cross-institutional teaching program in biomaterials, and an expansion of teaching and mentor arrangements for individual students. ***